EFRI-RESIN Workshop on Infrastructure Sustainability, Resilience, and Robustness, January 13-14, 2011, Tucson, Arizona

This grant is to help support costs for the “EFRI-RESIN Workshop on Infrastructure Sustainability, Resilience, and Robustness” to be held in Tucson, Arizona January 13-14, 2011. The 8 RESIN project teams, as well as additional selected experts in RESIN-related topics, will participate. The principal objective is to develop cross-disciplinary, workable definitions for sustainability, resilience, and robustness in the context of RESIN research. Secondary objectives are to strategize on means to overcome computational roadblocks that are common across RESIN projects and that are necessary to apply the concepts identified in the main objective, and to develop coordination of RESIN outreach activities.

Bruce Hamilton
9/29/10